Studies of Acoustic Gravity Waves in the Atmosphere

The ubiquitous presence of acoustic-gravity waves at all levels of the atmosphere is well known. These waves, after being excited by various sources, can propagate throughout all levels of the atmosphere from the troposphere to the thermosphere and can propagate large horizontally distances on the global scale. As these waves carry momentum and energy, they may play and important role in determining the large-scale circulation in the middle atmosphere and in coupling between the thermosphere and the lower atmosphere. The World Acoustic Gravity Wave Study (WAGS) study involves periodic campaigns, in which the PI and his associates participate. They were involved in a workshop on WAGS in January 1987. They will analyze data from the campaigns and perform theoretical investigations on the interaction of radar beams and propagating waves. Other theoretical research topics include the interaction of gravity waves with atmospheric vortices, such as are found in cyclonic disturbances. The subject of gravity waves is receiving increased attention as a source of energy and momentum coupling between the lower and upper atmospheres, and of mixing and turbulence throughout the atmosphere. The PI and Co I are internationally recognised experts in the field.